Anti-Shock Scheme Based on Dual-Membrane Structure in Capacitive MEMS Sensors and Actuators

The objective of this program is to develop a scheme based on
a novel dual-membrane-structure (DMS) configuration to
mitigate mechanical shocks for MEMS sensors and actuators,
which constitutes an outstanding problem in MEMS research. For
example, in order to maximize the sensitivity of an existing MEMS
microphone, the distance between the diaphragm and backplate needs
to be small and the membrane should be thin, rendering the device
particularly vulnerable to external shocks. The DMS configuration
represents an intrinsic, self-sustained, practically implementable
control scheme to counter mechanical shocks. A comprehensive
theoretical/computational/experimental paradigm based on MEMS
physics, nonlinear and synchronization analyses will be established
to validate the proposed approach.

The intellectual merit is that the strongly interdisciplinary
research will result in novel impact-protected MEMS devices with
nonlinear control. The research will lead to a new class of
MEMS sensors and actuators with ultra-reliable performances.
The theoretical/computational/experimental paradigm required to
realize the proposed research is transformative to developing
MEMS devices in biomedical, industrial, defense and homeland-security
applications.

The broader impacts are (1) to advance significantly understanding
of the fundamental dynamics of small-scale systems, (2) to enable
high-performance applications of robust MEMS devices in a broad
range of fields, and (3) to create an exciting environment for graduate
and undergraduate students in terms of interdisciplinary awareness and
skills.